SBIR Phase I: Novel Microphase Separated Solid Polymer Electrolytes

This Small Business Innovation Research Phase I project concerns with the development of
novel nano-structured polymer electrolytes (NSPE) for solid state Li-ion batteries, low
cost, 'dye sensitized' solar cells and electrochromic devices. The electrolytes feature
high ionic conductivity and excellent mechanical strength, resulting from an ordered
structure on the manometer scale consisting of an epoxy scaffold and a polymer electrolyte
network. The unique structure is obtained by self-assembly during curing of the epoxy in
the presence of an immiscible block copolymer containing the ion-conducting phase.